Mathematical Sciences: Dynamics of Quadratic Polynomials

9400974 Jiang The research entails connectedness properties of Julia sets in complex dynamical systems. A local connectedness property already established for certain cases is proposed to be established in a more general context. This research is in the mainstream of ideas of modern dynamical systems. Work of this type has applications to fractals and chaos. Since this area has become increasingly visual and more accessible to other scientific fields, there is potential educational value. ***